Downscaling of Climate Model Projections for the Arctic

OPP-9908812
WALSH, JOHN
UNIVERSITY OF ILLINOIS

General Circulation Models (GCMs) predict that the Arctic will be the first place to feel significant impacts from global change. The resolution of GCMs in the Arctic, however, is too coarse to resolve regional variations in climate. This research project will use a statistical method to downscale coarse resolution GCM output so that it can be used to force regional scale ecosystem models. Existing data (including Russian) and downscaled model extrapolations will be used to examine the variability of temperature and precipitation, especially with respect to regional topographic changes that are known to drive regional climate variability. This study will make available a climate study on a regional scale that can be used by other researchers to examine the assessments of the impact of climate change on the Arctic.